Asian Aerosol Source Identification, Chemical Transformation and Long Range Transport, Spring and Summer, 2001

This project supports a component of ACE-Asia (Aerosol Characterization Experiment). The project contributes a ground-based aerosol measurement network along the Pacific Rim, including sites in the Philippines, Taiwan, Korea, China, Japan, and Hawaii in collaboration with Asian scientists. Several of these sites have been already established, and others will be added for ACE-Asia.
Aerosols will be collected on portable, continuously sampling, sizing impactors and subsets of the collected samples will be later analyzed based on meteorological and other data. The analysis techniques include total mass, trace metals by synchrotron XRF, measurements of soot and organic matter, and ion chromatography. These data will provide information on the size and chemical composition aerosols in the boundary layer and lower troposphere in East Asia during a time of massive transport into the North Pacific. Information on sources and transport pathways will be obtained. Mie calculations will be performed to evaluate the radiative impact of these aerosols.